Delta Cache Coherence Protocols

Finding a good solution to the cache coherence problem is critical to the effective use of medium and large scale multiprocessors. The high cost of remote memory access in such systems makes it important that processes be able to access data locally, but allowing processes to hold local copies of shared writable data requires finding a good way to keep the copies consistent. This project will investigate a new family of cache coherence protocols called delta cache protocols that maintain cache coherence with little or no synchronization. Delta cache protocols are directory, as opposed to snoopy, protocols. The delta cache protocols are based on isotach time systems, time systems implemented by a class of networks called isotach networks. Isotach networks are characterized not by topology - they can be imp lemented on arbitrary topologies - but by the guarantees they provide about the relative order in which operations appear to be delivered. Isotach systems require custom switching elements, but can be built with off- the-shelf processors and in a variety of configurations ranging from tightly -coupled multiprocessors to clusters of workstations. A simulation study of isotach systems shows that they outperform comparable conventional systems under realistic workloads, in many cases by an order of magnitude or more. In extreme cases, they outperform conventional systems by an arbitrary amount. The project is a three year study of the cache coherence problem with the goals of exploring the design space for cache coherence protocols opened by isotach networks; and evaluating the performance of delta cache protocols. The exploratory work includes protocol and cache design; extending the approach to a variety of topologies and to other levels of the memory hierarchy; and devising ways to reduce the network bandwidth requirements of the protocols and to improve the efficiency of the protocols through data migration. The performance study will simulate isotach and conventional systems with caches and compare their performance under a variety of workloads. The simulation will build on the already completed simulation of isotach systems without caches.